Symplectic Topology and Hamiltonian Dynamics

Symplectic geometry is an intriguing generalization of Kahler geometry to
a wide, and as yet not completely understood, class of smooth manifolds.
Though it retains echoes of many of the structural features of the
Kahler world (for example Lefschetz pencils, and complex curves),
symplectic geometry is much more flexible than Kahler geometry.
In particular, every finite dimensional symplectic manifold has an infinite
dimensional group of structure-preserving transformations (called
symplectomorphisms), while the corresponding group in the Kahler case is
necessarily finite dimensional. McDuff proposes to study the topological
properties of the whole symplectomorphism group, and in particular its
relation to its finite dimensional subgroups. One important question is
to develop a criterion for detecting if a given circle in the symplectomorphism
group is homotopially trivial. McDuff has been working with Sue Tolman on
this question and proposes to continue this collaboration, making a special study
of the case of symplectic toric manifolds. In another separate project, she
hopes to develop a fuller theory of symplectic characteristic classes to
provide homological tools for understanding these questions.

Both symplectic and Kahler geometry are very important in modern theoretical
physics; string theories often study fields defined over a special kind of six
dimensional Kahler space called a Calabi--Yau manifold, while instanton
corrections to many equations and functions are often defined in purely
symplectic terms. In order to understand a geometry it is essential to understand
what kind of transformations preserve it; for example in the standard Euclidean
geometry studied in high school the structure (distances and angle measurements)
is preserved by rotations and translations. This project studies the properties
of high dimensional families of these transformations (for example, the set of
all rotations of the plane) rather than of individual transformations. There
is a well understood theory (the theory of Lie groups) that works for rigid
geometries such as Euclidean or Kahler geometry. One main aim of this project
is to see how much of the structure remains in the more flabby and flexible
symplectic world, where are infinitely many intrinsically different ways of
perturbing space.